Materials Research Science and Engineering Center

The Materials Research Science and Engineering Center (MRSEC) at the State University of New York Stony Brook entitled "MRSEC-Novel Materials, Processes and Functional Materials by Thermal Spray" is a collaboration between SUNY Stony Brook, UC Santa Barbara, MIT, Idaho National Engineering Lab, Sandia National Lab, NIST, and Brookhaven National Lab. The goal of the Center is develop the scientific base for the complex technique of thermal spray and to create a robust and predictive materials deposition tool. The Center's research is organized into one interdisciplinary Research Group (IRG). A major initiative of the group is to develop theoretical and experimental tools for processing and characterization of functional deposits with coupled mechanical/electrical and mechanical/magnetic properties. The Center supports well maintained shared experimental facilities and also supports interactive efforts with industry and other sectors. The Center has a strong industrial outreach program, which creates mutually beneficial relationships between the MRSEC and the industrial sector. The program also provides opportunities for students to be involved in internship programs and is especially targeted to encourage minority students to enter the field. The collaborations with National Labs are extensive and involve a significant number of faculty members and students. Participants in the Center currently include 17 senior investigators, 3 postdoctoral associates, 6 graduate students, 8 undergraduate students and 1 support person. Professor Herbert Herman directs the MRSEC.